Understanding Achievement in Science and Mathematics in Rural School Settings

The Kentucky Science and Technology Council, Inc., through its Appalachian Rural Systemic Initiative Leadership, will host a conference on research topics needed in rural education, particularly in the disadvantaged Appalachian region. The conference will bring together researchers, practitioners, community leaders, parents, and others interested in rural education, to formulate a research agenda, most likely conducted through a partnership with two regional research universities.